Research in Model Theory: Generic Structures

Abstract

Award: DMS-0203747
Principal Investigator: Kitty L. Holland

Holland's proposed work centers on applying the Hrushovski-style
amalgamation technique to produce novel examples of omega-stable
structures. Together with Baldwin, Holland is engaged in an
attempt to use this technique to produce a bad field. Holland's
work toward this end has produced algebro-geometric results of
independent interest on the relationship between transcendence
degree and multiplicative group rank in characteristic zero
fields. Holland proposes to exploit this work to complete the
bad field project with Baldwin and to extend the
algebro-geometric results. She further proposes to settle
stability questions for certain structures produced by the
technique; to analyze the geometries of structures produced by
the technique and to extend her joint work with Baldwin toward an
abstract model theoretic analysis of the technique and its
products.

Since its introduction in the early 90s, Hrushovski's
amalgamation technique has been applied with great success to
settle a variety of old existence conjectures central to
algebraic model theory. Holland's ambition, embodied in this
proposal, is threefold: To continue breaking new ground in
application of the technique, to explore the limitations of the
technique by characterizing common properties of its products,
and to make the technique more widely and efficiently applicable
by extracting common difficulties arising in its implementation
and dealing with them uniformly on an abstract level.

Holland's proposed work centers on applying the Hrushovski-style
amalgamation technique to produce novel examples of omega-stable
structures. Together with Baldwin, Holland is engaged in an
attempt to use this technique to produce a bad field. Holland's
work toward this end has produced algebro-geometric results of
independent interest on the relationship between transcendence
degree and multiplicative group rank in characteristic zero
fields. Holland proposes to exploit this work to complete the
bad field project with Baldwin and to extend the
algebro-geometric results. She further proposes to settle
stability questions for certain structures produced by the
technique; to analyze the geometries of structures produced by
the technique and to extend her joint work with Baldwin toward an
abstract model theoretic analysis of the technique and its
products.

Since its introduction in the early 90s, Hrushovski's
amalgamation technique has been applied with great success to
settle a variety of old existence conjectures central to
algebraic model theory. Holland's ambition, embodied in this
proposal, is threefold: To continue breaking new ground in
application of the technique, to explore the limitations of the
technique by characterizing common properties of its products,
and to make the technique more widely and efficiently applicable
by extracting common difficulties arising in its implementation
and dealing with them uniformly on an abstract level.